Mathematical Problems in Low Dimensional Gauge Theories

Abstract Proposal: DMS-9800955 Principal Investigator: Ambar Sengupta This project is an investigation of certain infinite dimensional functional integrals and measures arising from geometric quantum field theories and their relationship to natural geometric objects in two and three dimensions. In two dimensions the object in question is the moduli space of flat connections over a surface. This space appears in contexts as diverse as algebraic geometry and quantum gauge theory: it is the moduli space of representations of the fundamental group of a surface, it has arisen in the study of certain invariants of three-dimensional manifolds, and in certain contexts it is the moduli space of certain types of bundles over a surface. Dr. Sengupta has been led to study the structure and nature of the moduli space through his investigation of a limiting classical form of an infinite dimensional measure which arises in the quantum theoretic study of gauge fields. This investigation will study the infinite-dimensional quantum field theoretic measure, understand the way in which it condenses onto a natural volume measure on the moduli space, and extract information about the structure and volumes of the various strata of this space. This investigator believes that much topological information about the moduli space of flat connections is contained in the Yang-Mills probability measure. It is hoped that this project will provide a fruitful example of how probability theory can be used to understand topology in this context. In three dimensions, this project aims to develop a rigorous analysis of the quantum-field theoretic functional integrals arising in Chern-Simons theory and understand, at a rigorous level, their relationship with topological invariants. These investigations will also provide new concrete non-linear problems and techniques, involving stochastic processes on Lie groups, in infinite-dimensional Gaussian analysis. In broad terms, this project inv estigates mathematical questions that arise from the deep relationship between geometry, topology, and physics. The idea that space, time, and matter can be understood in terms of geometry forms the foundation of Einstein's general theory of relativity. Later, as the study of quantum theory and elementary particles developed, it was discovered through the works of Yang, Mills, and others, that geometry and topology play an even deeper and more subtle role in mediating the fundamental forces of nature. In recent years, many mathematicians have focused their attention on deep problems in topology and geometry which arise from questions in fundamental particle physics. The mathematics here is often understood at a rough and intuitive level. This project is devoted to putting some of these mathematical issues on firm foundations as well as discovering new results in the mathematical setting.